Macroscopic Space-Time Codes for Homeland Security

This research involves the development, installation, and
verification of a collection of error control codes that
are employed across base stations to vastly improve the
performance of public safety radio systems (i.e. those
used by police officers and firefighters). In particular,
recent events have demonstrated the stringent demands placed
on public safety radio systems in times of extreme crisis.
Such systems must handle high-priority delay-sensitive voice
transmissions that often need to be broadcast to a large number
of receivers over the challenging wireless communications channel.
The wireless channel can introduce significant signal fading, and
the narrowband frequency allocations and current collection of
single-antenna base stations in public safety radio systems
make it difficult to combat the effects of such fading using
previously considered techniques. Employing a single error
control code across multiple base stations can improve the
broadcast to a group of system users in the area, but there
are a number of technical barriers to such an approach.

The fundamental problem is that, because of the large geographical
area covered by the transmitting base stations, the relative time
of arrival at the receiver of signals from different base stations
can vary greatly, and, since the application is partial broadcast,
no amount of relative transmission timing can remedy such. The
research team has demonstrated that many standard space-time
schemes lose diversity versus signal fading in such a situation;
however, the team is developing families of codes that are robust
to this offset, thus preserving diversity against fading across the
coverage area. These codes are termed "macroscopic space-time
codes," which, in addition to being developed, are being verified
on the OpenSky testbed of partner M/A-COM, Inc.